RUI: Continuum Modeling of DNA Cyclization

The investigator studies the incorporation of local chemical
structure of DNA into a continuum rod model of the molecule. In
several instances, this requires an extension of the basic
capabilities of the Cosserat rod model. For example, numerically
efficient self-contact computations, and stability tests
associated with them, are required. This represents an extension
of classic calculus of variations methods to the case when the
equilibrium Euler-Lagrange equations are integro-differential.
In addition, the investigator seeks an efficient incorporation of
localized DNA flexibility into the rod model, which requires
careful study of the interaction of this flexibility with the
rapid intrinsic twist of DNA. These methods are applied to
specific DNA systems of biological interest, such as the
TATA-box, in collaboration with an experimental biochemist.
Advances in experimental techniques and computational power
over the past decade have offered for the first time the
possibility of understanding the atomic-scale behavior of DNA.
At the same time, technology does not allow all-atom computer
simulations of DNA of realistic length; even if such simulations
were possible, they would in large part be wasteful, since they
would fail to take advantage of the highly constrained nature of
double-helical DNA. The challenge facing DNA modelers is to
incorporate into simplified models this growing database of
atomic-scale information. The projects pursued by the
investigator seek to bridge this gap, with techniques that
hopefully will be useful in a variety of other biochemical
systems.
The investigator studies the incorporation of local chemical
structure of DNA into a continuum rod model of the molecule. In
several instances, this requires an extension of the basic
capabilities of the Cosserat rod model. For example, numerically
efficient self-contact computations, and stability tests
associated with them, are required. This represents an extension
of classic calculus of variations methods to the case when the
equilibrium Euler-Lagrange equations are integro-differential.
In addition, the investigator seeks an efficient incorporation of
localized DNA flexibility into the rod model, which requires
careful study of the interaction of this flexibility with the
rapid intrinsic twist of DNA. These methods are applied to
specific DNA systems of biological interest, such as the
TATA-box, in collaboration with an experimental biochemist.
Advances in experimental techniques and computational power
over the past decade have offered for the first time the
possibility of understanding the atomic-scale behavior of DNA.
At the same time, technology does not allow all-atom computer
simulations of DNA of realistic length; even if such simulations
were possible, they would in large part be wasteful, since they
would fail to take advantage of the highly constrained nature of
double-helical DNA. The challenge facing DNA modelers is to
incorporate into simplified models this growing database of
atomic-scale information. The projects pursued by the
investigator seek to bridge this gap, with techniques that
hopefully will be useful in a variety of other biochemical
systems.